Acquisition of Computation and Visualization Tools for Disciplinary and Interdisciplinary Research Training of Undergraduates in Astronomy, Chemistry, Geology, and Physics

9601603 Shapiro, Steven S. Whitnell, Robert M. Guilford College Academic Research Infrastructure: Acquisition of computation and visualization tools for disciplinary and interdisciplinary research training of undergraduates in astronomy, chemistry, geology and physics. This Academic Research Infrastructure award supports the acquisition of computation and visualization workstations. The workstations are to be used for faculty and undergraduate research in computational science. The research projects supported by the equipment include projects on astronomy and chemistry using spectral studies of galactic clouds; geology and physics using predictive techniques to determine mantle viscosity from rebound effects of the glacial age - this research also will involve GIS access and use; interdisciplinary research involving novel uses of computational visualization.